Computer Science Scholarship Program

This project provides scholarship support to academically talented students who demonstrate financial need and major in computer science or a related field. It increases the number of students successfully completing degree programs in computer science, computer science technology, information technology and mathematics (with a minor in computer science). The program attracts, mentors, retains, develops, and increases the graduation rate of students in computer science and related fields, especially minority, women, and students with disabilities.

The intellectual merit of the program is reflected in the increased number of computer science and technology students who successfully complete the computer science program. The broader impact of the program is to broaden the participation of underrepresented minorities and to present the program at professional conferences, further expanding the reach of the program.